Western (U.S.) Workshop on Mathematical Problems from Industry; Summer 2009, Claremont, CA

De Pillis
DMS-0909213

The principal investigator and her colleagues organize a
workshop for industrial math problems. The format follows one
introduced by Oxford University applied mathematicians in 1968,
which has been replicated frequently in the UK, Canada, Europe,
and in various other countries (there are 8-10 such workshops
each year). The format consists of an initial presentation of a
number of problems by industrial scientists/engineers. The
audience is then organized into small groups to work separately
on each problem for 3-4 days. An oral reporting session
concludes the week, followed by a written report on each problem
some weeks later. The participants in the workshop consist of
from 30-40 graduate students and about 30 faculty, and with an
expectation of at least 6 problems from industry this means that
each problem is worked on by 10 applied mathematicians. The
workshop is preceded by a student modeling camp which follows a
similar format except each problem is presented by a faculty
member. Some of these problems may have been partially addressed
by the faculty presenter, others not, and the aim of the camp is
to bring the student participants into the culture of intensive
group work, and to give them confidence in starting the week when
ALL the participants start on NEW, practically-important problems
knowing that their experience and hard work will prove fruitful.

Apart from a substantial record of success in providing
answers to the problems (this is catalogued at a web-site where
e-prints for 250 individual reports from recent workshops are
available in many, quite diverse, application areas), there are
multiple goals for the event: establishment of closer connections
between industrial and academic scientists; education of students
and faculty about the requirements of industry in the use of
mathematics; training of students in group participation projects
(the norm in industry), and the experience of working alongside
faculty and joining in the ups and downs of intensive work where
progress is measured by an industrialist in need of a result.
Problems committed to the workshop include one from a
semiconductor company for modeling current flow in a new design
nanoscale transistor, and two from bio-tech companies, one
relating to a medical device that has unwanted internal
vibrations and the other needing statistical modeling for
micro-array analysis.